Research Initiation Award: Influence of Microporosity and Surface Basicity on the Reactivity of Novel Aromatization Catalysts

The effects of surface basicity and microporosity of the support on the conversion of n-hexane over platinum on magnesia catalysts is examined. Platinum clusters inside the channels of basic zeolites catalyze the aromatization of n- hexane with high activity and selectivity; recently it has been discovered that platinum clusters on a nonzeolitic basic oxide possess similar activity and selectivity, throwing into question the usual explanations for this property. In this study, the composition of the oxide is varied systematically to change both the microporosity and the surface basicity in predictable and measurable ways. Reactivity measurements are used to determine the importance of these structural and chemical variables on the selectivity of platinum-catalyzed aromatization. This work attempts to redefine the factors responsible for the high selectivity observed. It is already clear that this approach should have a broader scope than thought previously, but the limits of the scope are unknown. Applications in processing of chemicals and fuels are numerous.